Experimental Research in Elementary Particle Physics

This proposal requests support for a research program in experimental high energy physics based at Rutgers University. The major focus of the group for the next three years is on:

Preparation and operation of theCDF detector at the Fermilab Tevatron to study proton-antiproton interactions at 2 TeV,

Preparation of the CMS experiment for future operation at the Large Hadron Collider (LHC) currently being built at the CERN laboratory in Geneva Switzerland to study proton-proton interactions at 14 TeV,

Observation of the highest energy cosmic rays, of order 1020 eV, with the Fly's Eye detector in Utah, and the upgrade of that detector (HiRes), and

R&D work on chemical-vapor-deposition diamonds for use as particle detectors in intense radiation envorinments where corresponding silicon-based detectors cannot survive. This work is supported separately, but is included in the proposal for completeness.

In addition, the group is completing analysis work and expects to publish results on two earlier experiments: KTeV at Fermilab and SLD at SLAC.